To transfer $185,205 to Dept of VA on behalf of the NSF to procure healthcare services from Hummer Whole Health Mgmt, Inc. thru VA & Hummer Whole Health's contractual agreement

To transfer $185,205 to Department of Veterans Affairs on behalf of the National Science Foundation to procure healthcare services from Hummer Whole Health Management, Inc. through VA and Hummer Whole Health's contractual agreement during the period of May 1, 2001 through September 30, 2001.